RUI: Reconstruction of the Laurentide Ice Sheet Over the Great Lakes Region from Tilt Data of Glacial Lake Shorelines

Field work supported under EAR8607330 has suggested that the southern Lake Michigan region is indeed dynamic, responding to global relaxation forced by the melting ice sheets of the last ice age. The goal of this research is to continue field work by eliminating the extent of ice transgression. The theoretical aspect includes use of field data to reconstruct, using generalized inversion theory, the most likely insight into most appropriate models expressing earth rheology. Results will shed light on the current "hinge-line" hypothesis exploring glacial rebound of the crust, provide information on the nature of the ice sheet and style of glaciation, and yield a greater understanding of glacio-isostasy and the mechanism for earth mantle convection. Undergraduates will fully participate in this research project.